SHF:Small:Fine-Grain Many-Core Processor Arrays for Efficient Enterprise Computing

Data centers worldwide use approximately 30 billion watts of electricity
with data centers in the United States using approximately 8 to 10
billion watts. Power consumption of datacenter systems is expected to
continue to grow both absolutely and as a percentage of national
consumption. The goal of the proposed research is to develop massively
parallel processor arrays that work in conjunction with traditional
enterprise-class processors to compute datacenter workloads with vastly
greater efficiency. The proposed research may lead to new applications
and capabilities that were previously constrained by power dissipation
or processing throughput.

Project participants will propose, model, develop, and characterize
novel fine-grain many-core architectures, VLSI chip designs, and
application algorithms for a processor array serving as a co-processor
or functional unit. The proposed programmable fine-grained many-core
processor array contains no algorithm-specific hardware and is of a core
granularity that is very lightly explored in prior work. The array will
operate inside or near, and in co-ordination with a host
enterprise-class processor and compute key computational kernels often
with similar or higher performance than the host processor, but with
orders of magnitude higher energy efficiency. During kernel computation,
the host processor could attend to other tasks or enter a low power
state. The targeted workloads include sorting, regular expression based
pattern matching, encryption, data compression, video encoding and
decoding, and other enterprise workloads of high impact that are
discovered during the course of the research.